An Undergraduate Computer Hardware Laboratory.

Under this project, a computer hardward development laboratory will be developed. It will include fifteen student stations, each equipped with and Intel SDK-86 microcomputer board, an oscilloscope, digital voltmeter, signal generator and design trainer. The laboratory will support three new lower level courses: Computer Organization and Logic, Microcomputers, and Microprocessor Interfacing.